III: Small: Collaborative Research: Mining Information Propagation on the Web

Real-time information is a fundamental emerging issue in the creation
and management of Web content. Increasingly, rather than consulting
relatively static sources that are indexed on a periodic basis,
people refer to information on news sites, blogs, social-networking
sites, and Twitter feeds that change dynamically and spread rapidly.
This project will study how information content varies over time, how
it is transmitted through underlying social networks, and how its
recipients assemble it into larger units. The project will explore
new techniques for addressing these issues, based on novel methods
for tracking, analyzing, and presenting information that evolves and
spreads rapidly over time. The resulting approach aims to transform
important aspects of the ways in which real-time information on the
Web is handled.

First the fundamental units of information that spread through the
underlying information networks will be identified. From a set of
nearly 1 billion news media articles and blog posts (approx. 6TB of
data), and a collection of 500 million tweets from Twitter, small
(generally textual) units of information will be identified that
remain relatively stable as they spread through the Web. The
temporal variation within these basic units will be analyzed and
modeled. This modeling will include connections with biological
models of epidemics, as well as new frameworks that exploit the
fundamental differences between biological and social contagion.
Finally, the temporal variation will be related to network-level
models for the diffusion of this information. Generally, the actual
networks on which real-time information spreads cannot be directly
observed, nor can the influence of any particular node in the network
be directly measured. Therefore, the project will develop machine-
learning techniques that infer these hidden networks and unobserved
levels of influence.

For more information see the project web site at:
http://snap.stanford.edu/proj/mipro